Optimal Design of Topology and Microstructure of Discrete Parts in Project MAXWELL

Kikuchi 9300326 Project MAXWELL aims at bringing together two research efforts under way at the University of Michigan (U-M) and at Carnegie Mellon University (CMU) in the area of discrete part design and manufacturing. The U-M team has developed a strategy for designing the form and material composition of structures and structural components based only on a description of loading conditions and packaging requirements. The CMU team has developed a method for free-form fabrication of parts from single or composite materials by thermal spray shape deposition. Under project MAXWELL, structural parts will be designed (both for form and material composition), fabricated, and tested in an integrated manner. This project is concerned primarily with the design phase of project MAXWELL. In particular, the previously developed, mathematically rigorous procedure for the concurrent design of material composition and topology of 2D structures to include 3D components. This involves two major tasks: (1) extending the 2D domain of the homogenization method to include the realization of novel mechanical parts that possess superior structural and thermo- mechanical properties, and satisfy downstream manufacturing requirements. The project address proof of concept through design, manufacture, and testing of actual parts.